Water Purification by Electron Irradiation in the Presence of Polymers

Research will be conducted on a potential process for removing organic contaminants from water. Energized electons produced by an accelerator will be used to alter the molecular structure of the contaminants and to capture the contaminant-fragments on polymers through which the water flows while being subjected to radiation or to cause crosslinkage of polymers in solution/suspension for subsequent removal by a separation techinque.